An Investigation of the Chemistry of Model Extreme Pressure Lubricant Additives

The detailed understanding of the mechanisms of action of extreme pressure lubricant additives is the focus of the research of this project supported in the Analytical and Surface Chemistry Program. Professor Tysoe at the University of Wisconsin- Milwaukee investigates these questions by using a combination of ultra high vacuum surface spectroscopic measurements, thin film growth studies, and tribological investigations of model systems. Building on the understanding of chlorine containing extreme pressure lubricant additives developed previously in this laboratory, this project explores the mechanisms of action of sulfur and phosphorous containing additives. A connection between the surface chemistry of these materials and their operation as lubricants is sought in this work. A detailed microscopic understanding of tribological processes is of considerable utility in a number of technologically important areas, including metalworking, disk head lubrication, and the transportation industries. Understanding the atomic level processes occurring when one material slides over another in the presence of a lubricant molecule is the focus of the research of this project. A combination of surface spectroscopic studies and direct measures of friction forces for a series of model lubricant molecules will provide this understanding. Friction and wear is a relatively underexplored area of surface science, and the work of this project will contribute to our growing understanding of this technologically important area.